Whither Biometrics

Biometrics is an emerging critical area for homeland security. The proposed effort will conduct a study of biometrics. In particular, the following activities will be carried out:

Survey the state-of-the-art in Biometrics
Examine the current biometrics technologies and determine areas for future work
Identify the needs of the government in biometrics
Produce a report that summarizes the findings.

The participants of this study will be from academia, industry and government who are experts in the field.